Purchase of a 300 MHz NMR Spectrometer

This award from the Chemistry Research Instrumentation and Facilities (CRIF) Program and the Major Research Instrumentation (MRI) Program will assist the Department of Chemistry at Hope College to acquire a 300 MHz nuclear magnetic resonance (NMR) spectrometer. This equipment will enhance research in a number of areas that include the preparation and characterization of reduced mono-Cp zirconium compounds for use in C-C bond forming reactions, the use of chiral tin(II) complexes for asymmetric syntheses, the synthesis of derivatives of poly(m-xylylene) to investigate the thermal processing of coal, the preparation of novel polymeric material, and the use of enzymes for the synthesis of asymmetric lactones. Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research. The results from these NMR studies are useful in the areas such as polymers, catalysis, and in biology.